Graph Encodings, Embeddings, Labelings and Applications

In all graph algorithms, graphs are encoded by binary strings.
The problem of encoding graphs by binary strings is a fundamental
problem in computer science. To be useful in graph algorithms,
an encoding of a graph G should be as short as possible and
support various graph queries and operations. The well known
adjacency-matrix and adjacency-lists representations are used by
virtually all existing graph algorithms. However, they do not satisfy
all of these requirements. New graph encoding schemes satisfying all
of these requirements for various graph families will be developed.
Once such an encoding scheme for a graph family is found, it will be
possible to improve and/or simplify existing algorithms for solving
problems on this graph family. In addition to graph algorithms, the
short encoding of plane triangulations (i.e. triangular meshes) has
important applications in Computer Graphics.

A planar graph may have many plane embeddings. For some applications,
it is often required to find an embedding such that certain properties
are satisfied. These problems arise from areas such as VLSI design,
Geographic Information Systems, and some graph optimization problems.
Existing algorithms for solving these problems rely on dynamic
programming and are not efficient. In this research project we will
develop more efficient algorithms and explore their applications.

A common technique is used in several recent algorithms for solving
graph drawing and floor-planning problems: Labeling vertices or edges
of a graph so that certain regular properties are satisfied; then
solving the problems by using the combinatorial structures resulting
from the labeling. We will extend this technique and use it to solve
other problems in these fields.